Marie Curie Scholar Program (MCSP) at College of Saint Mary

This all women's college is recruiting and retaining students majoring in Biology, Chemistry, or Mathematics. The objectives include the following science, technology, engineering, and mathematics (STEM) related actions: curricula enhancement, local intern and research opportunities, and on-campus research. The project includes plans for enhancing and augmenting existing student support and job placement programs by providing additional support for S-STEM scholarship recipients.

Intellectual Merit. In addition to scholarships, this project includes modifying the Biology, Chemistry, and Mathematics curricula to introduce service-learning components into one course in each of the three areas and to increase the number of on-campus research activities available for STEM students. STEM faculty have developed an undergraduate research program utilizing institutional and local support that fosters collaboration between Biology, Chemistry, and Mathematics majors.

Broader Impacts. By meeting the primary goals of the S-STEM program, this project serves the broader objective of increasing the number of well-qualified women graduates in biology, chemistry, and mathematics. Dissemination of the knowledge that the institution gains from administering this project is providing insights on how to recruit and retain female STEM students, and the essential support structures necessary for women to succeed in STEM disciplines.